Portable Computer Equipment for Undergraduate Geology Field Students

Geologists are using personal computers in all phases of work in both academic and industrial applications. It is imperative that undergraduate students be exposed to many computer-oriented applications in order to have a smooth transition to graduate school or the work place in a more professional, efficient, and less stressful manner. The use of portable computer equipment in geology field camp, a required undergraduate course in an unique environment (full time work with real problems), is an ideal educational opportunity. The following applications are being initiated: stratigraphic analysis, structural analysis using stereo nets, computer-generated contour maps (use and pitfalls), geological map and cross section preparation, and graphical illustrations and geological report writing. In addition, the portable nature of the hardware allows use of this equipment in mineralogy, petrology, economic, structure, hydrology, and geophysics labs during the rest of the year. This allows students to solve geological problems without leaving the lab and the instructor in order to go to computer cluster locations. Overall, the enhancement not only allows for quicker and more professional products, but most importantly, old exercises are updated to a new level of modern geology and geological analysis.